Phylogeny of the Euglenoid Flagellates: An Ultrastructural Approach

Euglenoid organisms have fascinated biologists for generations, because of their peculiar amalgamation of plant-like and animal-like features. About 800 species of euglenoids have been described, usually quite briefly, mostly from freshwater and estuarine sources. Because they are small cells, there are a limited number of morphological features that can be detected with the light microscope and used in the classification of these organisms. Capitalizing on the pioneering application of electron microscopy to unicellular organisms, Dr. Richard Triemer is studying aspects of mitosis (cell division) and of the internal feeding apparatus, to acquire reliable new characters of use in the taxonomy of these creatures. Already, his work has strengthened the view that euglenoids evolved from colorless, flagellated protozoa and that they are closely related to such protozoan groups as the trypanosomes. Dr. Triemer will survey several groups of euglenoids, examining them for the diversity of mitotic and feeding apparatus likely to occur in the group. These novel observations, combined with existing morphological, molecular, and physiological data, will be used to establish a reliable system of taxonomy for the euglenoids and to construct an evolutionary tree showing relationships within the group and between the euglenoids and other groups of protists.